Syntheses of Metallointercalating Reagents as NMR Probes. NMR Studies of Their Stacking Interactions with Nucleic Acids

This Research Opportunities for Women Research Planning Grant is in the Inorganic, Bioinorganic and Organometallic Chemistry Program. The project is in the area of bioinorganic chemistry and has as its focus the interaction of small molecules, especially metal complexes, with DNA. Dr. Sook-Hui Kim will perform preliminary experiments to evaluate Pt-195 NMR spectroscopy as a tool for the investigation of the interaction of platinum compounds with DNA. These compounds are valuable probes of DNA structure.